Improving Calculus Instruction Using Theorist And Multimedia

9352767 Gibson A computer laboratory with the mathematics software, Theorist, is being developed to relieve students from difficult algebraic calculations, thus enabling them to concentrate on concept development and understanding. In addition, multimedia presentations that explain and reinforce Calculus concepts in an exciting manner are being developed to encourage student interest and success. Five multimedia modules, on limit, continuity, differentiation, integration and series that explore, clarify and amplify concept understanding are being developed. The modules are being developed to particularly meet the needs of the divers student body; at least 50% of the institution's students are non-native English speaking and sixty-nine percent of incoming freshman place below standard college entrance level in mathematics placement tests. ***